SBIR Phase II: Folding Power Wheelchair with Modular Battery System

This Small Business Innovative Research (SBIR) Phase II project aims to develop a lightweight modular wheelchair that can be easily lifted and handled by either the user or a companion. This wheelchair can be loaded into any vehicle, thus dramatically improving the mobility of the user. The research project focuses on designing the frame, drivetrain, motor and battery system to allow more of synergistic effect and lightweight to aid the user in his/her mobility.

The commercial and societal benefits from this project will result in not only greater mobility but also drastic increase in the quality of life for the user, improved family mobility.